The Homotopy Theory of Classifying Spaces

DMS-0104318
Jesper Grodal

The project consists of developing the homotopy theory
of classifying spaces of compact Lie groups (including
finite groups) and their generalizations. The goal of
this is to solve central problems in homotopy theory involving classifying spaces, as well as to discover new relations
to problems in group theory and representation theory.
A further goal is to produce results in related fields
such as in the theory of group actions, equivariant
cohomology, and group cohomology. The project centers
around developing the homotopy theoretic group theory
of the classifying space BG, or rather of its p-completion.
This involves examining the induction theory, p-local theory, representation theory as well as the more general actions
of these objects. The methods used come from modern unstable
homotopy theory, developed since the solution of the
Sullivan conjecture, combined with ideas and techniques
from modern group theory.

Forming the classifying space BG of a group of
symmetries G is a way of geometrically or topologically
encoding the "symmetries" present in G. Geometric spaces
of this form and generalizations thereof are ubiquitous
in topology, and hence form an important class of
spaces to study. Furthermore, the less rigid structure
of the classifying space BG, compared to that of
the group G, makes certain techniques available in
the study of the former which were not available when
dealing with the later directly. Hence, studying the group
theory of BG provides an interesting and useful way of
studying the original group G.